NSF INCLUDES-DDLP: Sustaining Workforce Diversity in Emerging STEM Economies

This project, an NSF INCLUDES Design and Development Launch Pilot, managed by the University of Nevada, Reno, addresses the grand challenge of increasing underrepresentation regionally in the advanced manufacturing sector. Using the state's Learn and Earn Program Advanced Career Pathway (LEAP) as the foundation, science, technology, engineering and mathematics (STEM) activities will support and prepare Hispanic students for the region's workforce in advanced manufacturing which includes partnerships with Truckee Meadows Community College (TMCC), the state's Governor's Office of Economic Development, Charles River Laboratories, Nevada Established Program to Stimulate Competitive Research (Nevada EPSCoR) and the K-12 community.

The expected outcomes from the project will inform the feasibility, expandability and transferability of the LEAP framework in diversifying the state's workforce locally and the STEM workforce nationally. Formative and summative evaluation will be conducted with a well-matched comparison group. Dissemination of project results will be disseminated through the Association for Public Land-Grant Universities (APLU), STEM conferences and scholarly journals.